Cavitation-Mediated Gene Transfer

9704960 Zhong The purpose of this Small Grant for Exploratory Research is to conduct a carefully planned experiment over twelve months to determine the feasibility of cavitation-mediated gene transfer using ultrasound energy as the agent to induce the transfer. The method proposed is to use shock wave lithotripsy (SWL), similar to that employed to fracture kidney stones, to activate microbubbles and associated microjet formation to deliver genetic material into target cells. The cavitation-mediated technique to be investigated is untested and thus the project is exploratory and high risk. However, the ultimate application of a successful new technology would be as a gene therapy for the treatment of a variety of diseases, including cancer, heart disease, and degenerative neurological disorders. Other applications for a successful technology would be found in agriculture. The effect of acoustic cavitation on cells is incompletely understood and the results from this proposed research project should add to the knowledge base in this area even if the goal to provide a significant advance in gene transfer is not reached. ***